Photochemical Ozone Budget of the Eastern North Pacific Atmosphere II (PHOBEA II)

A recently completed project (PHOBEA, Photochemical Ozone Budget of the Eastern North Pacific Atmosphere) will be extended in this work. The chemistry of the background North Pacific atmosphere will be investigated from the Cheeka Peak Observatory in Washington State, from a small aircraft, and at a newly established ground site at Mt. Ashland, Oregon. This work will focus on ozone, its precursors, and fine particles with the goal of understanding the sources for these compounds, and specifically what fraction of them may have been transported from Asia. A mesoscale model will be used to help determine the meteorological flow patterns during the observation period.